Descriptive Complexity

Computational Complexity is a modern discipline which analyzes the inherent difficulty of a given task. A great deal of progress has been made in classifying the time and space requirements of certain combinatorial problems. The complexity classes L, NL, P, NP-logarithmic space, nondeterministic logarithmic space, polynomial time, nondeterministic polynomial time, respectively-have been studied extensively. Nonetheless little is known about the comparative strengths of different resources-it is yet to be proved that the above classes are not all identical. These classes will be studied from a mathematical viewpoint, and have examined the inherent difficulties of expressing conditions and shown that a robust alternate view of complexity ensues. The computational complexity of a property is closely tied to the complexity of expressing the property in first-order logic, and a series of languages have been introduced which express exactly those properties checkable in a series of computational complexity classes. The existence of such natural languages for each important complexity class sheds a new light on complexity theory. These languages reaffirm the importance of the complexity classes as much more than machine dependent issues. The research will concentrate on the following specific proposals: (1) Order-Independent Languages, (2) First-Order Interpretations, (3) Applications to Databases and Incremental Complexity, and (4) Tradeoffs in Descriptive Complexity.